Collaborative Research: A MCS Investigation to Study Axial Crustal Structure and Alteration of Upper Crust at the Juan de Fuca Spreading Center

This project is an integrated multichannel seismic investigation of the intermediate-spreading Juan de Fuca Ridge. The primary goals are: (1) to determine the location, size and physical properties of crustal magma bodies along the ridge and relate these properties to the recent eruptive history of the ridge, (2) to measure the variation invelocity and thickness of the indicators of magmatic state, and (3) to characterize the alteration history of the upper crust as a function of sedimentation history, crustal age and basement relief.